CAREER: Semantics for Statistical Machine Translation

The past few years have seen a revolution in machine
translation, with the widespread adoption of
statistical systems trained on large amounts of
parallel bilingual text. Recent evaluations have shown
that current statistically trained research technology
significantly outperforms commercially available MT
systems such as those available on the web. But even
state-of-the-art systems produce garbled translations
more often than not. Further improvements in machine
translation will require major changes in the
architecture of statistical systems. Our research aims
to improve the quality of machine translation output by
allowing statistical systems to handle deeper, semantic
representations.

Our approach focuses on improving statistical machine
translation by using a semantic representation at the
level of predicate-argument structure. This work
builds on the recent success in statistical approaches
to shallow language understanding, and tree-based
algorithms for machine translation using syntactic
parses of the source and target sentences. Over the
course of the project we aim to: first, develop robust
semantic parsing systems capable of generalizing to new
domains and apply them to large bilingual corpora,
second, develop probabilistic models of translation
that use the resulting level of representation and can
be practically trained, and third, integrate language
understanding and translation to allow efficient search
for the best overall translation of new sentences.